Summer Teacher Research Fellowship Program in Cell Biology

This, three year, nationwide program provides opportunity for middle and high school biology teachers to spend a summer doing research, full-time, in a college or university laboratory engaged in research in cell biology. This program emphasizes the identification of highly motivated teachers who will return to their home school and have the opportunity to have a continuing impact on the quality of science education through the design of innovative laboratory exercises and through the provision of in-service instruction for other teachers. Participating teachers will share classroom activities and information regarding issues in pedagogy and science education reform at a meeting held in conjunction with national NABT meetings. Emphasis will be placed on the involvement of female and minority teachers and on school systems that serve large numbers of minority students. It is expected that this program will have an impact on science education at the secondary level and have at least an indirect impact on career choices made by some secondary students. An amount equal to 23.1 % of NSF costs will be provided as cost sharing.